Research in the Large Scale Atmospheric Dynamics

This basically theoretical research project involves a systematic investigation of various large scale linear and nonlinear atmospheric dynamical processes. A number of idealized high-resolution spherical models with/without topography and with/without self-induced condensational heating will be formulated and analyzed. The principal investigator will look at the instability characteristics of certain types of flow and the response of the model atmosphere to several types of forcing due to orography and heating. The results of the investigations are expected to improve our understanding of a number of atmospheric phenomena including regional cyclogenesis, storm-tracks, and low frequency variability.